Holocene Climate Variation and Thermohaline Circulation in the Atlantic

This ESH project will test the hypothesis that millenial cooling events in the North Atlantic during the Holocene are caused by reduced meridional heat transport from the tropics. High0accumulation-rate sediment cores from the Bahamas and the Brazil margin spanning thermocline depths (400-1000 m) will be analyzed at 250-year intervals for C and O isotopic composition of benthic and planktic foraminifera, with emphasis on the benthic 18 O data. A temporal correlation between high-latitude, surface water cooling and low-latitude, thermocline warming at these sites will support the hypothesis.